Protein Affinity Chromatograpy

Paralogs are short polymer analogs of antibody binding sites (paratopes) used as chromatography ligands. Like antibodies, they provide a mixture of binding modes at the molecular dimensions of analytes. The Phase I work by Terrapin Technologies established that these ligands provide a useful set of novel sorbents for separating proteins. The proposed work encompasses two extensions of the Phase I work. First, selected non-standard amino acids will be incorporated to increase the specificity of the resulting paralog families for particular classes of proteins, such as glycoproteins. Second, in order to achieve higher resolution for separating small molecules, such as peptides, suitable chemical modifications of the paralogs will be developed for attaching the ligands to HPLC compatible sorbents. Both projects address fundamental questions raised by the success of the initial work on paralog affinity chromatography, and both lead to new products with widespread utility in research, medical, and industrial applications. It is anticipated that Terrapon's ligands will be used as chromatographic media by research biochemists purifying novel proteins, by pharmaceutical manufacturers purifying proteins on a preparative scale, and by Quality Assurance laboratories assessing the purity of therapeutic proteins.